Internet Performance Measurement and Analysis

This award supports a three-year project to conduct research and develop tools for Internet performance diagnostics, measurement and analysis. The project focuses on two primary areas of Internet statistics: routing stability, topology and visualization; and network service provider performance diagnostics and measurement. The overall goal of the project is to develop tools and perform statistical research that promotes the stability and rational growth of the Internet. It is expected that the project will be supported in future years by other funding sources such as industry-wide consortia.